Organization of the 6th International Conference on Multiphoton Processors, Laval University, Quebec, Canada

9313810 Quinn This grant will support travel and registration fees for graduate students and postdocs to attend the 6th International Conference on Multiphoton Processes (ICOMP) to be held June 25-30 at Laval University, Quebec City, Canada. ***